Expression of Mammalian Na,K-ATPase in Yeast

The enzyme Na, K-ATPase is the protein that is responsible for the active transport of Na+ and K+ across animal cell membranes. Two non-covalently linked polypeptide subunits, alpha and beta, are known to be essential for Na,K-ATPase function, although the role of the beta subunit is not known. The goal of this research is to use an in vivo expression system for mammalian Na, K-ATPase in the yeast Saccharomyces cerevisiae to obtain information about the structure of the enzyme. The two subunits are currently synthesized in low abundance in yeast cells. the specific objective of this award is achieve efficient expression of the subunits in yeast so that the enzyme can be prepared on a large scale for detailed studies of its structure and function. The results of this research will help to elucidate the mechanism essential for the function of all living cells.